AMS Summer Policy Colloquium 2009-2011

Funding is provided to support the American Meteorological Society (AMS) Sumer Policy Colloquium, a yearly ten-day workshop on the basics of atmospheric science policy. Each year, the AMS brings together academics, practitioners, and policy makers at the highest levels of government, in both the executive and legislative branches, and leaders of private enterprise and non-governmental organizations to discuss how science and policymaking intersect.

Through the Colloquium and a range of AMS-sponsored follow-on activities, participants learn how to: (1) help their scientific knowledge become incorporated in broader aspects of the national agenda such as contributing to public health and safety, economic growth, protection of the environment and ecosystems, and geopolitical stability; and (2) engage effectively in the development of public policy for science.

The broader impacts involve supporting a diverse group of graduate students and faculty of exceptional scientific and leadership potential to gain a fuller understanding of science and policy.